Southern California Student Research Consortium

9353874 Bozler The University of California and the Southern California Student Research Consortium will offer an academic year, multi- disciplinary Young Scholars program to students entering grades 10 to 12. This program places students under the supervision of professional scientists at universities, museums or industrial laboratories. Student research culminates with a presentation at the annual meeting of the Southern California Academy of Science. Research techniques, ethics of science and opportunities for scientific careers are explored in a series of Saturday meetings. ***